1999 Summer Conference on General Topology and its Applications

Proposal: DMS-9972550

Principal Investigator: Sheldon Rothman

Abstract:

The conference will have five special sessions. The session on Set-Theoretic Topology and its Applications will stress the interplay among the classical topics of topology and analysis, including the newly defined field of study called set-theoretic analysis. The Dynamical Systems session will include the application of tools from continuum theory to this subject. A goal of the session on Topological Groups is to discuss the new methods in this area used in solving problems in functional analysis and stochastic processes. Topological vector spaces and rings of continuous functions will be the principal areas of the Topological Algebraic Structures session. The fifth special session, Asymmetric Topology/Topology and Computer Science, will be devoted mostly to applications of techniques from topology to computer science. Talks in this session will be on such topics as domain theory and semantics of programming languages, and digital topology and computer visualization. In addition to the special sessions two workshops will be given. The Dynamics and Topology of Entire Functions workshop will describe how Cantor bouquets, indecomposable continua, explosion points, and a topological kneading invariant play a principal role in determining the dynamics of certain maps, while the workshop on Topological Groups will discuss projective limits and balanced groups.

The Summer Conference series on General Topology and its Applications began in 1984 at the City College of New York with 35 participants and 13 talks; the 13th such Conference, in Mexico City, June 1998, was the third held abroad; it had about 150 participants from across the United States and 27 other countries, and featured 110 talks. The reason for this growth is in the recent history of general topology. This field studies generalized shapes and limits, and was developed to solve problems elsewhere in mathematics. After a time of concentration on problems internal to it, the emphasis in topology is again turning toward applications to other areas. Almost half our invited speakers work outside topology, but apply it; so participants gain new research ideas and connections between other fields and topology. Here is an example relating topology and computer science: Exact computation of real numbers is impossible as long as only finite amounts of information can be stored. But using topology the set of real numbers and some other such important examples can be shown to have "approximation models" that allow arbitrarily accurate computation of their elements, an essential for all sensitive calculations such as those used for weather prediction and space flight. Joint work by Conference participants, including some which took place at our Conferences, led to proof that an object has an approximation model precisely if it is a "Polish space". This is particularly satisfying since Polish spaces are among the first objects discovered by topologists, and have been studied for almost a century